Plasma Processing Science Gordon Research Conference

Funds are provided to support the attendance of students and young investigators at the 2000 Gordon Research Conference on Plasma Processing Science to be held at the Tilton School on August 13th - 18th, 2000.